Investigation of Causes and Mechanisms of Landslides and Mudboils in the Tully Valley, NY

9418484 Negussey The project will investigate the causes and mechanisms that contribute to mudslides and mudboils in the Tully Valley, New York State. Field investigation will include boreholes in landslide sites and in undisturbed ground along the limits of the slide, in-situ shear tests and pore pressure transducers measurements and this information together with existing data will be used to establish a stratigrahic section for stability analysis. Laboratory tests on a series of consolidated undrained samples will be conducted to investigate anisotropy. The results from the field and laboratory tests will be used to select and verify appropriate soil models, to analyze stability using limit equilibrium and finite element methods and aiming at identifying both the landslide mechanisms and the sensitivity of the analysis to key parameters. The results of this work will provide a better understanding of the landslide process and the development of mitigation measures. ***